Fluorescent DNA Sequencer with Robotic Molecular Biology Workstation

Funds are requested to purchase an ABI PRISMTM 377 DNA sequencer to upgrade the DNA sequencing shared resource facility in the Beckman Research Institute at the City of Hope Medical Center. The requested equipment will provide increased output in both the number of samples sequenced and in the amount of data derived from each sample. The DNA sequencing facility currently supports 30 44 investigators with a variety of basic interests and novel techniques in the field of molecular biology. For example, the requested equipment will support projects involved in: DNA damage and the repair of the damage plays an important role in disease and aging. A project to understand the mechanisms of W induced damage and repair in human cells is underway. Gene products that interact with DNA repair proteins are being studied using ligated mediated PCR. Their role in binding to DNA domains will require the use of DNA sequencing. Oxygen free radicals play an important role in disease and aging. They damage DNA and proteins and they alter gene regulation. Studies on the structure, function and regulation of proteins that modulate free radicals are in progress. Glutathione peroxidase, carbonyl reductase, and DT-diaphorase are being studied to determine their role in free radical modulation, mutagenesis, carcinogenesis and drug metabolism. The cloning, expression, and structural analyses of these genes in tissue culture and in transgenic animals will require the use of the DNA sequencing equipment. The Major histocompatibility region in chickens encodes for resistance to several diseases. A family of genes within the Mhc is being studied to understand the mechanisms by which resistance to disease occurs. Polymorphic expression of genes in the Mhc is a key feature in vertebrates. The reason for this polymorphic expression is not known in humans. The chicken offers a model system to understand the relationship between gene expression and disease. Characterization of the genes with in the Mhc will require extensive DNA sequencing. Cyclic GMP-inhibited cAMP phosphodiesterase (PDE3) has been extensively studied for its important role in the antilipolytic action of insulin in adipocytes. Recent data has shown that two different PDE3 genes exist which are expressed in a tissue specific manner. One of these genes is expressed in the cardiovascular system and may contribute to diabetic vascular disease. The characterization, regulation and structure of the genomic gene will be analyzed using the DNA sequencer. The role of X chromosome inactivation, DNA methylation, and chromatin structure will be studied in genomic imprinting. Genomic imprinting results in the selective expression of either the maternal or paternal alleles of a gene. The mechanisms of genomic imprinting are presently unknown; however, genomic imprinting is implicated in several diseases leading to mental retardation, cancer and behavioral problems. A basic understanding of the mechanism(s) of genomic imprinting is essential to understanding the timing and mechanisms of gene regulation during embryonic development. A new improved procedure for sequencing methylated DNA will be used with the requested equipment. Other projects types that will need the requested equipment include protein-nucleic acid interactions, alternative splicing, ribozyme construction and characterization, tissue specific transcriptional and post translational regulation in Drosophila, the role of the transcription factor TWIST in regulating early bone development, the structure-function of genetically engineered antibodies, and the regulation of aromatase in estrogen-dependent breast cancer.